Use of Mathematical Software and Its Implementation in the Curriculum

The program will be directed at the thoughtful introduction of modern technology into the undergraduate mathematics classroom using the University of Arizona's software and will consist of two components. A ten day workshop during which the participants learn about technology in the classroom and create instructional material which they can take back with them. The workshop will be divided into several parts: Seeing software demonstrations and completing software assignments; Textbook examination for appropriate incorporation of technology; discussion of new material, and individual experimentation with software. A three day follow-up meeting held the following January during which participants will report back on what they did, sharing the ideas and experiences they gained from implementing technology in the classroom and raise specific problems they have encountered.